Recomb Special Session: Computational Challenges and Emerging Areas within Computational Biology

The field of computational biology has undergone explosive in the last decade. To understand the computational challenges facing computational biology in the next 5-8 years, the PI proposes to run a special session at the next RECOMB2012 (http://recomb2012.crg.cat/) focused on emerging areas. RECOMB is an international scientific conference bridging the computational, mathematical and biological sciences, and is an excellent forum for disseminating the latest developments in computational biology.